Engineering Research Equipment Grant: Minicomputer for Expert System Research and Development

Equipment will be purchased to support research into the development and application of artificial intelligence tools and expert systems in particular. The specific projects include: development of an expert system to assist in compiler construction, development of an expert system to aid in training users of VLSI design tools, development of advanced interfaces to knowledge-based systems, research into the software development environment, and development of a computer learning model.